Generation and Evolution of Magnetic Pulsations in the Terrestrial Foreshock Region

The collisionless shock is a fundamental process in space plasmas that involves energy conversion between electromagnetic fields and particles. Magnetic pulsations in the foreshock region are sites with efficient energy conversion and rich wave-particle interactions. This work studies the magnetic pulsations in the Earth’s foreshock region. It will advance understanding of wave-particle interactions and shock dissipation. Two early career researchers will be supported.

The project employs high time resolution spacecraft observations and multi-dimensional fully kinetic simulations. The objectives include: (1) Understand how the magnetic pulsations are generated from instabilities; (2) Understand how secondary waves in the magnetic pulsations are generated and coupled with each other; (3) Understand the plasma energization and wave-particle interaction in the magnetic pulsations. The research uses fully kinetic simulations and spacecraft observations that resolve cross-scale (ion to electron scales) processes with 3D distribution functions, an effective approach to enhance the science impact of the research and achieve closure.